ACOPS Project on Protecting the Russian Arctic Marine Environment from Land-Based Sources of Pollution

Abstract
OPP-9910735
This transfer of funds from NSF to NOAA will provide partial support for an international partnership conference and support meetings related to implementation of the Russian Federation's National Program for Action in the Arctic (NPA-Arctic). The focus of NPA-Arctic is to protect the Arctic marine environment from land-based pollution. The plan focuses on environmental issues related to policy, management, monitoring, public awareness, and enhanced institutional capability. The objectives of the main Partnership Conference currently being organized is to seek partnership for activities and financial support for proposals that are required for successful implementation of the NPA-Arctic. Oversight and organization are being handled by the Advisory Committee on the Protection of the Sea (ACOPS). Other U.S. federal agencies in addition to NSF are providing partial support.***